The University of Colorado Contribution to the Arcadia Effort

This award provides support for a portion of the work of the Arcadia project. Arcadia is a major, joint research effort the aim of which is to gain fundamental understandings about desirable architectures for the integration of software tools into environments and particularly in support of software testing, analysis and evaluation. Arcadia is an experimental research project which aims to gain these understandings through the creation and experimental evaluation of an actual environment prototype--Arcadia-1. A key innovative feature of the approach being taken by Arcadia is to consider software processes to be items of software themselves and to view an environment as a mechanism for specifying, compiling and interpreting these processes, using software workers as intepretation primitives. The University of Colorado's participation in the Arcadia project will focus on formalisms and media for the expression of software processes--an activity which is referred to as process programming--on architectures and implementations of environments for the support of process programming and on the creation, integration and evaluation of software testing, analysis and evaluation tools. Major experimental research efforts are needed to provide basic understandings of overall software development environments. The Arcadia project is a significant effort toward achieving those understandings.